SGER: Strengthening Industrial Competitiveness Through More Effective Integration of Management Functions; United Statesand Japanese Needs and Experience

In the course of developing the world's most efficient manufacturing sector, U.S. management has relied increasingly on beliefs and practices which are proving to be less well adapted to post-1980 requirements for regaining international competitiveness. The objective of this research is to undertake an intensive exploration of the management development policies, practices and results in five major Japanese companies as the basis for comparison with five major U.S. firms in similar industries. Field work for the Japanese portion of this exploratory project has been completed. This project will carry out the U.S. complementary part of this undertaking. Given the urgent need for better understanding of the core issues underlying our county's decline in manufacturing competitiveness, this study is not only timely but should contribute a unique and very well respected perspective to the knowledge base in technology management.